Dissertation Research: Arab-American Ethnicity

This study will involve a detailed analysis of Arab-American ethnicity in the San Francisco Bay area. The student will look at ethnicity on an interpersonal level by analyzing individuals and their actions in relation to issues of nationality, religion, social class, and gender. Data will be obtained through in-depth interviews, life histories, participant observation, and archival research. By combining historical, interpretive, and action-oriented perspectives with analytical narratives, this study will test the usefulness of a new approach in ethnology. It will also provide new information for the continuing debates over the dynamics of ethnicity. Besides filling significant gaps in our knowledge of Arab- Americans, the least studied U.S. minority, this research has the potential for influencing social policies toward ethnic minorities in the United States. It is particularly relevant at a time when stereotyping of Arab-Americans is on the rise.